Multiphase Problems of Nonlinear Elasticity

Healey
0707715

The investigator studies several multi-phase problems of
nonlinear elasticity, with applications to lipid-bilayer
membranes, shape-memory alloys and thin films. A common thread
running through these problems is the following mathematical
structure: a non-convex potential energy in the lower-order
terms, which includes the loading, in addition to a small,
higher-order regularization (or singular perturbation),
characterized by a small parameter e > 0. The main goals of this
work are: (1) to provide classes of rational models --
particularly in the case of multi-phase lipid-bilayer membranes
-- for understanding the often exotic behavior of such
structures; (2) to systematically find equilibria corresponding
to local minima of the total potential energy or meta-stable
solutions. In addressing (1), observe that mechanical
experiments on real materials often begin with a homogeneous
specimen that progressively develops increasingly complex
patterns or micro-structure under steady, quasi-static changes in
loading. The investigator employs rational continuum models,
characterized by general constitutive functions, and looks for
thresholds of bifurcation and exchange of stability to compare
with experiment. In particular, meta-stable solutions are the
ones presumably observed in quasi-static experiments.
Accordingly for (2) he considers a new methodology based upon:
(a) rigorous existence of solutions for arbitrarily small e > 0
via symmetry-breaking global bifurcation methods and a-priori
bounds; (b) efficient and reliable global numerical
path-following to find meta-stable states.

The project focuses on fundamental modeling and predictive
mathematical analysis for the quantitative characterization of
shape and deformation patterns of certain micron-scale structures
under applied loading, namely, lipid-bilayer membrane vesicles,
shape-memory alloys and thin films. Each of these has direct and
important connections to basic science and technology.
Lipid-bilayer membranes are ubiquitous in bio-molecular systems;
understanding and predicting their mechanical behavior is crucial
for understanding cell function. The project focuses on simple,
man-made membranes or liposomes. The future promise of liposome
vesicles (closed membranes) as vehicles for drug delivery demands
a fundamental understanding of their mechanical behavior under
loading. Likewise for phase transitions in shape-memory alloys
and wrinkling/blistering of thin films -- a fundamental
understanding and the mathematical prediction of their behavior
are important for characterizing the mechanical properties of
novel materials and for potential sensing and actuation at the
micron scale.